I/UCRC for Ocean Technology Center Planning Meeting

The ocean technologies have significant economic and scientific impact to our nation. An Industry/University Cooperative Research Center on Ocean Technology at the University of Rhode Island could provide a better mechanism to advance the development and application of basic research on ocean technologies. A planning meeting will study if industry will support an Industry/University Cooperative Research Center on Ocean Technology to be headquartered at the University of Rhode Island. The meeting will asses industry interest and determine if the Center has sufficient support and merit to meet the Industry/University Cooperative Research Centers Program criteria. The proposed research projects will address:1) development of analytical techniques for environmental monitoring; 2) equipment development and testing; 3) development of hardware and software for collection and processing of under water acoustics and optics data. The Principal Investigator is recognized as an eminent researcher and has the resource for this planning meeting. This project has been coordinated with Dr. Norman Caplan, Program Director of the Environmental and Ocean Systems Program in the Division of Biological and Critical Systems at the National Science Foundation. The Program Director recommends the University of Rhode Island be awarded $9,892 for one year for this planning meeting.